A Theory of Explanation in Science

93200097 Woodward Dr. Woodward is developing a treatment of explanation and causation with applications in both the natural and social sciences. A guiding theme of his study is that explanatory information is information that is potentially relevant to controlling or manipulating nature. Another closely related themes that the sorts of relationships that can be used to provide explanations must satisfy an invariance requirement--they must be relationships that will remain stable under some class of changes or interventions, for these will be exactly the relationships that will support potential manipulations. These two themes provide a central part of what Dr. Woodward takes to be the picture of causation and explanation implicit in the contemporary econometrics literature. In this research, he is extending and generalizing this picture to produce a general theory that will enable us to understand and assess the structure of different forms of explanation in the natural and social sciences and in more common sensical contexts. The theory he is developing will have interesting and somewhat novel consequences for how we should understand laws of nature and their role in explanation, for the role of derivational structure in explanations, for the possibility of explanations that do not appeal to laws, for the relationships between laws and counterfactuals, for the assessment of probabilistic theories of causation, and for understanding the role of idealization in scientific theorizing. ***